Mathematical Sciences: Geometric Inequalities in Fourier Analysis

This work will combine geometric problems with Fourier analysis in a concerted effort to exploit the symmetry structure of manifolds in determining that basic analytic inequalities for natural operators such as convolution, Fourier transforms, fractional integration, Poisson integrals and their generators. These are the mathematical instruments which characterize analysis on function spaces over a manifold. The thrust of the research will be to understand analysis on global manifolds defined by the classical Lie groups and their associated symmetric spaces, especially the rank one non-compact symmetric spaces with hyperbolic geometry, defined over real, complex or quaterionic numbers. Using conformal transformations such as the Cayley transform and stereographic projection, one shows that problems on these non-compact domains have equivalent realizations on compact domains associated with the rotation and unitary groups as well as boundary manifolds such as the Heisenberg group. The main tool in this work is the use of the underlying symmetry structure of the manifolds to prove sharp fractional integral inequalities. Such results provide as immediate consequences sharp Sobolev estimates for differential operators and other infinitesimal generators associated with differentiability. These inequalities have wide application to problems in differential geometry, non- linear partial differential equations, mathematical physics and probability. In addition, connections may be made to variational problems in string theory associated with conformal metrics.